Multiple-Wavelength Doppler Radar Interferometric Studies of Clear Air and Thunderstorms

The objectives of this research are the measurement of the clear air field of motion and the evolution of the raindrop spectra in selected thunderstorms. These measurements will be made using two doppler radars at the Arecibo Observatory, Puerto Rico, including their use as an interferometer. A third radar (915 MHz), a portable device, will be borrowed to ensure that winds below the cloud base can also be measured.